Mathematical Sciences: Problems in Several Complex Variablesand Partial Differential Equations.

Work on this project continues mathematical research into problems relating solutions of partial differential equations with mappings defined on surfaces in spaces of several complex variables. The general Cauchy-Riemann equations which test for analyticity are expressed as first-order differential expressions. In studying these expressions one tries to decide whether functions defined on surfaces and boundaries of domains can be extended as holomorphic functions to regions adjacent to the surfaces. A fundamental tool in these studies is the embedding of analytic discs into complex spaces of higher dimension with their boundaries going into real hypersurfaces or more general submanifolds. The vanishing or nonvanishing of the differential of such disc mappings has far-reaching implications in the study of mappings of hypersurfaces as well as to the extension problem already mentioned. Ultimately the research seeks to reveal more about mappings between manifolds, in particular to determine new geometric and algebraic invariants preserved under biholomorphic transformations. A second line of investigation follows from the recent completion of a succession of papers leading to the complete resolution of one of the fundamental extendibility questions raised by Lewy in the mid-50's: minimality of a generic manifold at a point is necessary and sufficient to guarantee that every Cauchy-Riemann function near the point extends holomorphically to a wedge. A description of the wedge of extendibility is unknown even in simple cases. Work will be done in finding a geometric description of the wedge of extendibility. Partial differential equations form the backbone of mathematical modeling in the physical sciences. Phenomena which involve continuous change such as that seen in motion, materials and energy are known to obey certain general laws which are expressible in terms of the interactions and relationships between partial derivatives. The key role of mathematics is not to state the relationships, but rather, to extract qualitative and quantitative meaning from them.